Contact structures, Floer homology and TQFT

Abstract

Award: DMS-0805352
Principal Investigator: Ko Honda

Recently it has become more evident that contact structures play
a central role in low-dimensional topology and Topological
Quantum Field Theories (TQFTs). The cut-and-paste theory of
contact structures in dimension three, developed by numerous
authors including the PI, can now be imported into Heegaard Floer
homology, a (3+1)-dimensional TQFT. The PI, together with his
collaborators, seeks to better understand the relations among
contact geometry, Floer homology theories, TQFTs and string
theory, and hyperbolic geometry. More specifically, the PI
proposes the following: (1) Analyze the TQFT properties of
Heegaard/sutured Floer homology. (2) Understand a certain
category obtained via contact geometry, which satisfies many of
the properties of a triangulated category. (3) Study contact
homology invariants of exact Lagrangian cobordisms between
Legendrian links in the symplectization of a contact manifold.
(4) Calculate the contact homology of tight contact structures on
hyperbolic 3-manifolds.

The PI proposes a study of 3- and 4-dimensional spaces using a
probe called a contact structure. The 3-dimensional spaces we
study will locally be similar to the standard (Euclidean)
3-dimensional space. These objects may be very complicated
globally, but a local observer cannot tell the difference, just
as an ant cannot tell whether it is sitting on a flat plane or a
very large sphere. A contact structure is a field in
3-dimensional space, analogous to an electric field in physics.
Just as the nature of the electric field, such as the strength
and the direction at any point, gives some information about the
distribution of the electric charge, i.e., the source of the
electric field, a contact structure gives information about the
shape of the ambient 3-dimensional space. A more thorough
mathematical understanding of contact structures in dimension
three may contribute significantly towards our understanding of
the shape of the universe.